Evolution of Co-dimension k>1 Manifolds Embedded in R^n and Applications to Medical Image Analysis

Faugeras
9972228
The investigators and their colleagues study the problem of
automatically clustering sets of points that lie on smooth
manifolds of arbitrary co-dimension. They use the geodesic snake
approach in which they set up a Partial Differential Equation
(PDE) that drives the evolution of a manifold in some potential
field created by the data points, such that the solution of the
PDE converges to a manifold that is very close to the data points
(ideally contains them). The "shape" of this manifold (including
its co-dimension) characterizes the set of points. They
investigate computationally efficient implementations for
evolving manifolds of arbitrary co-dimension by level sets
methods, because of their robustness and flexibility. These
implementations are being used to study the Euclidean and affine
mean-curvature motion of curves in three-dimensional spaces. Two
applications are being pursued by the investigators. The first
application is the detection of blood vessels in Magnetic
Resonance Angiography (MRA) images. In MRA images, blood vessels
appear as bright and noisy curve-like patterns, possibly with
gaps. It is important to detect those patterns independently of
the noise and to bridge the gaps. The detection of blood vessels
can be considered, as a first approximation, as an instance of
the three-dimensional case, co-dimension two. The second
application is the clustering of feature points in higher
dimensional spaces with an eye on two specific problems, the
description of the "shape" of a cluster and the design of
automated content-based image retrieval systems. A given pattern,
e.g. an image, can be represented by a vector of features in some
n-dimensional space. Patterns in the same class usually fall into
clusters that may have some very tricky "shapes". The
investigators and their collegues believe that their methods can
provide ways of automatically obtaining shape descriptions from
sets of sample feature vectors thereby facilitating the design of
recognition algorithms and improving their performances. A target
application is the design of automated content-based image
retrieval systems.
The investigators and their colleagues study the problem of
automatically fitting a set of points in a possibly
high-dimensional space to a set of smooth manifolds. This is
important because in many practical applications data can be
represented as points in high-dimensional spaces. They are
currently pursuing two applications of these techniques. The
first one is the detection of blood vessels in Magnetic Resonance
Angiography (MRA) images. In MRA images, blood vessels appear as
bright and noisy curve-like patterns, possibly with gaps. It is
important to detect those patterns independently of the noise and
to bridge the gaps. The results of this detection can be used in
the diagnosis of diseases and in planning surgery. The second
application is the description of the "shape" of a cluster of
points in a high-dimensional space. The investigators and their
colleagues are investigating means of automatically obtaining
such descriptions from a set of samples. They believe that this
will facilitate the design of recognition algorithms and increase
their performances. A target application that is particularly
relevant to the average citizen is the design of automated
content-based image retrieval systems. In such systems each image
can be represented by a point in some high-dimensional (10 to 20)
feature space, and images in the same class, e.g. images of cars,
cluster on some manifold, e.g a "car-manifold". The description
of the shape of this manifold (which is simpler than the real
shapes of the objects in the class) can then be used to retrieve
all images of, e.g. cars, in the data base because their
representations in the high-dimensional space will be closer to
the corresponding manifold than to any other.